Comparison of Sedimentary Relative Intensity and Magnetic Anomaly Records: Seeking the Geomagnetic Signal

Prliminary paleomagnetic results from ODP cores from Leg 145 show their suitability for study of the magnetic paleointensity. They span the same interval of time covered by deep-tow magnetometer survey near Juan de Fuca ridge that shows high-frequency wriggles within magnetic anomaly 5 (ca. 10 to 15 Ma). These wiggles are either due to high-frequency magnetic field reversals or variations in the Earth's magnetic field intensity. Funds provided will allow the study of these cores in detail and resolve the origin of the tiny wriggles.